Laser-Induced Fluorescence Diagnostic Studies of Reactive Species in a Pulsed Corona Reactor

ABSTRACT AGARWAL

This is a study of the mechanism and intermediates in the destruction of nitric oxide (NO) and nitrous oxide (N2O) in combustion emissions using a pulsed corona discharge. In situ laser-induced fluorescence (LIF) will be used to study the behavior of hydrogen atoms, hydroxyl radials, and carbon monoxide in the plasma-induced destruction of nitrogen oxides in the emissions from a coal-field fluidized bed combustion (FBC) system.

Although corona discharge is regarded as a promising technology for control of nitrogen and sulfur oxides from both mobile and stationary sources, previous studies have looked only at the stable end products. This is the first attempt to investigate the mechanism of the process and provide a rational basis for optimizing the system.